Computer Age Environmental Science Pre-College Teacher Development

This project will deliver in-service training to 30 middle school teachers in or near Erie, Pennsylvania. The participants will be introduced to modern ecological techniques and will also be instructed in the applications of microcomputers. The program will consist of four phases. Phase I will be a two-week, full-time workshop during the summer. Phase II will consist of nine Saturday workshops during the first semester, and Phase III will consist of seven Saturday workshops during the second semester. During these workshops, the participants will develop Environmental Computer Units to be incorporated into their courses. Phase IV will be a four-week workshop for individual project presentations. There will be extensive field trip activity during the first three phases of the project. Both Lake Erie and Presque Isle State Park are accessible for field studies and will be employed as study sites.